U. S. Germany Cooperative Research: Lateral Mobility of Transmembrane Proteins in Polymer-tethered Phospholipid Bilayers Studied Via Single Molecule Fluorescence Imaging

0089604
Naumann
This award supports Christoph Naumann and students from Indiana University-Purdue in a collaboration with Eva-Kathrin Schmidt of the Max Planck Institute for Biochemistry in Munich, Germany. The research focus is on development of appropriate artificial membrane architectures to allow studies of specific interactions of encoded proteins. There will be a great demand for such studies once the human genome has been mapped. This project uses the complementary facilities and expertise of the U.S. and German groups: the U.S. side provides detailed knowledge about state-of-the-art membrane architectures for transmembrane proteins and the equipment necessary to make pertinent measurements; the German counterpart has expertise related to the preparation and characterization of the transmembrane proteins to be used in the research. This joint collaborative research effort also presents junior researchers with the opportunity to work internationally, and the work done on this proposal will help institutionalize the relationship between the German and U.S. research groups.